Collaborative Research: Subduction and Exhumation of Ultrahigh-Pressure Rocks -- Field and Drilling Studies in Eastern China

0003568
Hacker

This project is focused on the area around a 5 km drill hole the Chinese are going to drill in the Sulu ultrahigh-pressure (UHP) metamorphic terrane in east-central China. The goal of the project is to understand the formation and exhumation of UHP rocks through study of ultramafic (mantle) rocks from a "forbidden zone" of P-T conditions (i.e., very high P, very low T). Some specific questions to be addressed are:
o What type of crust-mantle interaction occurs when continents are subducted?
o How much of continental mass is recycled in this manner?
o Can timing of fluid-rock interactions be constrained?
o What do the UHP garnet peridotites tell us about "petrotectonic" processes?
o How were UHP peridotites emplaced into the crust? How did they evolve during exhumation? What mechanisms and rates of ascent are necessary to preserve their high P, low T assemblages?
o What roles do slab hydrous phases play in recycling of volatiles into the mantle?
o Can we tell the difference between subduction/collisional architecture of orogens from younger events using deep-seismic profiles?
o In what tectonic settings does UHP metamorphism and subsequent exhumation occur? Is continent-continent collision required?

The Principal Investigators will employ a variety of methods in their study: 1) mapping and structural analysis; 2) petrology & geochemistry; 3) geochronology; 4) geophysics at the Donghai drill site; and 5) geodynamic modeling.
***